Additivity Problems in Quantum Information Theory

This proposal concerns several related problems in quantum information
theory, all arising from the study of noisy quantum channels. The first
problem is to prove additivity of minimal entropy and multiplicativity of
the maximal trace norms for a unital qubit channel. This result would imply
additivity of the Holevo capacity for such channels, thereby settling one
particular case of a longstanding conjecture. The second problem is to
investigate a conjectured equality between the Shannon capacity of a noisy
quantum channel and a new quantity which was introduced in earlier work of
the P.I.. The third problem involves a study of one special class of
non-product measurements for product channels, with the goal of providing
an interesting laboratory for testing ideas about entangled measurements.

Advances in nanotechnology have provided the opportunity for scientists to
study and manipulate the quantum properties of microscopic systems,
including single-atom systems and single-photon states. Recent theoretical
discoveries indicate that such systems may have extraordinary properties. One example
is the quantum computer, which is a theoretical device capable of
outperforming any standard computer. Another example is a protocol for
unconditionally secure encryption, which would be achieved by encoding
messages as quantum states. Mathematics played a key role in the
development of both of these ideas. The current proposal concerns a similar
mathematical investigation of quantum devices which would be used to
transmit and store information. A fundamental problem is to determine the
information capacity of such a system, and thereby find the quantum analog
of Shannon's famous expression for the capacity of a noisy channel. The
P.I. describes a strategy for determining this capacity in an important
special case, namely a memoryless channel where "qubits" are used to encode
the information. The method of solution would involve some new mathematical
ideas which may have applications to other areas of quantum information
theory.